Infusing NSDL in Middle Schools: Obstacles and Strategies

This Targeted Research project is examining systemic issues that directly impact classroom teaching and learning in science, technology, and mathematics at the critical middle school level. In addition, the project is informing the development of an important component of a new NSDL portal targeting K-12 science and mathematics teachers. Through surveys, experimental studies, focus groups, interviews, and observations of teacher activities in curricular development and classroom practice, the project is establishing a research foundation to successfully develop and deploy new K-12 resources within NSDL and promote high quality teaching that integrates digital resources. The project is using multiple mechanisms to disseminate the research results including formal research reports and white papers, practical workshops, classroom Web resources for and by teachers, and involvement of learning communities. The Office of Multidisciplinary Activities in the NSF Directorate for Mathematical and Physical Sciences (MPS) is providing significant co-funding of this project in recognition of the value of this work in advancing the larger educational goals of MPS.